Presidential Young Investigator Award: Automated Mechanical Systems Synthesis

This research will generate alternate formulations of numerical algorithms that will be integrated to develop a package of conceptual design, kinematic and dynamic analysis, and analytical/experimental mechanical system optimization tools. An automated computer-based mechanical system "inventor" will be developed that generates and draws at the computer terminal candidate mechanical systems subject to designer-specified constraints. Numerically efficient methods for the analysis of nonlinear kinematic and dynamic mechanical systems will be generated, including a combined, lumped/distributed parameter dynamic modeling scheme and a parallel-processing dynamic analysis algorithm for multiple-body mechanical systems. Further, the systematic dimensioning and tuning of prototype systems for prescribed dynamic response will be implemented by developing optimization tools that integrate interactive, user-guided, parametric optimization, color computer graphics, and combined analytical/experimental methods (utilizing on-line, computer-controlled data acquisition of prototype response).